Superconducting Wire by Powder Consolidation Through Sheathing and Plastic Processing

The project deals with the processing of high Tc ternary oxide superconducting material into wire. Yba2Cu3O7 powder will be used as the starting material. It will be consolidated in a metal sleeve (preferably a noble metal or an alloy of the same) and hydrostatically extruded into a wire. The resulting wire will be characterized for structure, chemistry, and mechanical and superconducting properties.